Imaging the San Andreas fault Zone and SAFOD site characterization using 3-D-spread high-resolution seismics

0207921
Morozov

The Principal Investigators will conduct high-resolution seismic imaging of the San Andreas Fault zone by analyzing data from a removable, multilevel and multi-sensor, 3-component seismic array in the borehole of the SAFOD Pilot Hole. Specifically, they will record the borehole seismometer string during the active source experiments that are funded through other awards. To these sensors, they will add two mutually orthogonal surface spreads to perform a high-resolution, 3D, direct reflection imaging of the SAF zone from the surface to the depth of about 2 km. For sources, they will use a downhole vibrator and surface Vibroseis from a reflection/refraction line across the borehole site. The high-resolution seismic experiment will be an inexpensive alternative to a full surface 3D survey (very expensive!), with the advantages of direct and detailed imaging of the fault zone.
***